Electrical Transport in Earth Materials at Low- and High- Pressure

9315749 Tyburczy The PI will study a series of texturally equilibrated partially molten olivine-basalt systems at one bar total pressure, to examine the influence of grain size, temperature, oxygen fugacity, bulk composition, and melt fraction on the grain boundary electrical response. He will also develop methods to extend this work to elevated temperatures and pressures (up to 2000 C and 20 GPa) in a multiple anvil apparatus. The results of this study will be important for the interpretation and modeling of magnetotelluric data and will also shed new light on grain boundary transport processes in a variety of geological environments. The ultimate benefits will be a more detailed understanding of the temperature profile and state of the Earth's interior. ****